Group Travel Grant for NATO Advanced Study Institute on Science Policy, October, l989 in Pisa, Italy

This grant will provide funds for international travel for approximately 20 U.S. participants to attend the NATO Advanced Study Institute on "Managing Science in a Steady State." The support will benefit U.S. scholars in the field of science, technology and society studies and U.S. science policy analysts and managers, by exposing them to (1) a curriculum designed to introduce and augment the knowledge of each group with that of the other, and (2) their counterparts, and the work of their counterparts, in other countries. The Institute will be held the first two weeks of October 1989, at Il Ciocco, Tuscany. It includes three components, lectures, panel discussions, and seminars around three themes: national science systems - how they are changing; the selection and management of the research base; and knowledge, skill and career progression in science. The faculty includes men and women who are highly regarded scholars and administrators from the U.S. and Europe. Both the quality of the faculty and the selection of the program for inclusion as a NATO Advanced Institute provide assurance as to its quality. Guidelines for choosing U.S. recipients for travel grants include: need; balance between academic participants and those in management or policy positions; balance between experienced and junior researchers, research managers and policy analysts; representation of a wide range of academic disciplines, home organizations, and government, industry and academic participants. Results will include a book and evaluative reports on the need for further training and research in this field. In the last two decades, the fields of science studies and science policy have grown and become international. This grant will provide opportunities for the kind of exchanges that are essential if U.S. researchers and practitioners are to remain at their forefront. An award is highly recommended.